Role of P2X and P2Y ATP Receptors in Neuromuscular Development

0077634
Hume

Nerve cells communicate information to each other at narrow zones of contact
referred to as synapses. The incoming presynaptic cell releases a chemical
signal (the neurotransmitter), which binds to receptors on the target cell,
eliciting electrical excitation or inhibition. The general goal of these
experiments is to understand the mechanisms that allow developing synapses
to reach their stable, mature state. The principal hypothesis to be explored
is that in addition to the two signals known to pass between nerve and
muscle to promote synapse maturation (agrin and ARIA), an additional
signaling system also transmits key information. This proposed signaling
system consists of ATP (adenosine 5' triphosphate) released from presynaptic
terminals interacting with two different types of ATP receptors on the
muscle cell surface. The hypothesis will be tested by using molecular
biological and pharmacological tools to alter the function of the ATP
receptors on the surface of chick muscle cells developing within the egg,
and in cell culture.

It is important that mature neuromuscular synapses be stable, so that they
can reliably control of the routine actions of the nervous system such as
commanding muscles to move in the pattern that allows us to breathe.
However, understanding the mechanisms that promote synaptic growth and
maturation are likely to also provide us with insight into the mechanisms
that bring about changes in synaptic function in other regions of the mature
nervous system where synapses are not always stable. Changes in the
amplitude of synaptic responses are thought to be the cellular basis by
which learning and forgetting occur.